Infrared Eclipse Observations of the Solar Corona

This project gathers some of the principal cast of IR coronal experimenters in a concerted effort to mount a decisive campaign from an aircraft platform at the total solar eclipse of February 1998. The objectives are fourfold: (1) survey the intermediate infrared spectral region for the presence of coronal emission lines, to add diagnostic capability in coronal studies; (2) conduct photometric measurements of the infrared coronal radiance, to specify the relative roles of thermal emission and scattering from the interplanetary dust comprising the F-corona; (3) measure the spectral shift of Fraunhofer lines in the coronal signal to determine the motion of interplanetary dust near the sun, and understand previously reported variations from Keplerian orbital motion; and (4) study the He I 1083 nm radiation observed at the 1994 eclipse in the outer corona by means of line profile measurements.